Small Grants for Exploratory Research: The Utility of Brainstorming as a Methodology for Generating Concepts in Mechanical Design

The objective of this Small Grants for Exploratory Research (SGER) project is to evaluate brainstorming as a concept generation methodology in engineering design. A personality instrument is used to formulate groups and performance is measured by the number of concepts generated. Concept generation ability is tested with a single problem providing the functional requirement and the constraints. Statistical evaluation is to be conducted of the standardized change data between pre- and post-test scenarios. This research has the potential to develop ways of verifying design research in a manner that addresses human and technical aspects and also introduces some aspects of psychology and personality into the study of design.//